Research Esperiences for Undergraduates on the Juneau Icefield, Alaska

Ten undergraduates will be selected to participate in research projects on the Juneau Icefield, Alaska. For 40 years, research in the earth sciences, emphasizing geology, glaciology, geophysics, glaciometeorology, geobotany and surveying, has been conducted on this icefield. With cooperation between the University of Idaho's Glaciological and Arctic Environmental Sciences Institute and the Foundation for Glacier and Environ- mental Research, this research/educational activity aims at a total systems study of one of North America's largest icefields. Under supervision of professors of unique experience, drawn from the University of Idaho and other universities, each undergraduate will select a research project and be encouraged to exercise as much independent judgment and initiative as possible in its development. Undergraduates selected will be earth science students who demonstrate scholarly aptitude, motivation, and research potential. Because the research experience will involve field work in rugged glacier terrain, physical stamina will be necessary. The staff will be available throughout the season for advice and help, including lectures, seminars and site specific instructions in methodologies to insure an effective research experience.